Conference in Nonlinear Geometric Analysis

Abstrast
Gursky

This proposal seeks funding for the conference Nonlinear Geometric Analysis, to be held at Princeton University from Thursday, October 30 to Sunday, November 2, 2008. The goal is to bring together speakers from a broad cross-section of the discipline, and to disseminate recent advances in a forum which includes established and junior researchers. The speakers of the conference represent several important areas of development in the field, for example conformal geometry, fully nonlinear and higher order elliptic equations, and nonlinear evolution equations. This conference is timed to coincide with a year long program titled Geometric Partial Differential Equations at the Institute for Advanced Study, and the conference will both complement and benefit from that program. It aims to present young researchers with an accessible and detailed picture of the field, including the historical context, recent highlights, connections to other areas, important current results and open problems. Fully 63% of the proposed budget will be devoted to the support of graduate students and postdoctoral researchers.